Raman Spectrometer for in-vivo Tissue Analysis

This Small Business Innovation Research Phase I project is for development of a compact, rugged, fiber-optic Raman spectrometer system suitable for performing real-time, in vivo, tissue analysis in a clinical setting. Tissue characterization by laser-based spectroscopic methods, such as fluorescence and Raman spectroscopy is showing significant promise for identification of tissues on the basis of chemical composition and for evaluating the health status of tissues. Coupled with fiber-optics, these methods offer the extraordinary potential of performing tissue chemical analysis in vivo. Before these powerful new diagnostic methodologies can be implemented as practical tools in a clinical setting, a number of instrumentation problems need to be resolved. In particular, current laboratory research instruments must be converted into rugged, low-cost, easy-to-use, compact units suitable for deployment in a clinical setting and reliable operation by clinical personnel. This proposal offers an innovative approach to solving this problem.